NSF/EPA Partnership for the Environmental Research: Technology for a Sustainable Environment Task Order #126

Friday Systems Services Inc. CTS-9612653 This is a service contract with Friday Systems. Title of project NSF/EPA Partnership for the Environmental Research: Technology for a Sustainable Environment Task Order #126.